CAREER: Capacity of Wireless Networks: Cooperative Communication

Capacity of Wireless Networks: Cooperative Communication

The fundamental capacity limit of wireless networks is a highly pursued
yet elusive problem lying at the intersection of distinct fields of
research. The principle issue is the lack of appropriate tools within any
one field to tackle this problem in its entirety. This research activity
builds an inter-disciplinary framework for the analysis of this
fundamental limit, merging networking and optimization theoretic concepts
such as node cooperation, cooperative routing and Lagrangian duality in
conjunction with sophisticated mathematical tools from information theory.
A mathematical theory is developed using these diverse tools and, where
necessary, introducing new tools to obtain 1) improved achievable rates
for a given network configuration over those currently known 2) novel
outer bounds on network sum capacity, 3) non-trivial conditions where
inner and outer bounds meet and 4) algorithms that compute the
corresponding resource allocation strategies for time-varying wireless
networks.
Specifically, techniques such as joint source-channel coding, multi-user
binning and multiuser cooperative coding are used to develop the inner
bounds on the capacity of the systems, while Lagrangian duality theory and
estimation theory is used both to develop outer bounds on capacity and to
compare the inner and outer bounds.